Developing Capacity-Based Evaluation Approaches to University Science Programs: Comparing Interdisciplinary Centers and Traditional Academic Units

This evaluative research project seeks to evaluate the capacity of research units in academic settings. Capacity is determined by by the fit of the human capital available in the research unit and the infrastructure available to support them. Emphasis will be placed on information technology where much current interest exists. The researchers will look at three setting: research centers in majority institutions, science and engineering in HBCUs and EPSCoR institutions, and traditional disciplinary-based departments. The study will be carried out with a variety of methodologies, including case studies, questionnaires and review of existing materials.